Connections to NSFNET: A Pilot Program for Science and Technology Centers

9402301 Ellis A group of six science and technology centers across the country proposes to form a pilot collaborative effort to establish connections to NSFNET. These institutions share the vision that access to the resources provided via NSFNET will significantly enhance their ability to achieve their common missions and goals in providing informal science education for students, teachers, and the general public. Further, it is expected that this group of institutions will serve as a model for other museums and represents the vanguard in what will become a general movement for science and technology centers to become full participants in this national communication network. The partner institutions of this collaboration are: The Franklin Institute (PA), Liberty Science Center (NJ), Museum of Science (MA), Center of Science and Industry (OH), Oregon Museum of Science and Industry (OR), St. Louis Science Center (MO), The Science Place (TX). Connection to NSFNET will bring a wide range of remote information resources within immediate reach of museum researchers, educators, and visitors. Specifically, access to the NSFNET will help the partners of this pilot group to improve operations in the areas of teaching, research, and service.